Student Travel Support for the 49th IEEE/ACM Symposium on Microarchitecture (MICRO)

The project will enable students to defray the costs of traveling to and attending the 49th Annual IEEE/ACM International Symposium on Microarchitecture (MICRO-49), to be held October 15-19, 2016, in Taipei, Taiwan. MICRO is the premier forum for presenting, discussing, and debating innovative microarchitecture ideas and techniques for advanced computing and communication systems. This symposium brings together researchers in fields related to microarchitecture, compilers, chips, and systems for technical exchange on traditional microarchitecture topics and emerging research areas.

This project will have two primary broader impacts. First, the MICRO conference will be strengthened as a result of the greater attendance that this travel support will enable. Second, those students receiving travel support will personally benefit from the opportunity to interact with peers and experts, as well as establish connections that will help their professional careers. More broadly, we expect additional indirect impacts. First, the available support will be widely advertised in order to attract women and under-represented minority groups (through postings on computer architecture web-sites and mailing lists). Second, by focusing on students, the project will help foster the mentoring of subsequent generations of computer architects.